Variational Analysis in Problems of Optimization

Pang, Jong-Shi
From: Terry Rockafellar [[email]]
Sent: Wednesday, June 13, 2001 3:59 PM
To: [email]
Subject: proposal abstract

Jong-Shih, here's the abstract for my proposal "Variational Analysis
in Problems of Optimization".
Terry

~~~~~~~~~~~~~~~~~~~~~~~~~~~~~~~~~~~~~~~~~~~~~~~~~~~~~

This project will apply the latest advances in variational analysis to
a range of optimization problems and issues. Sensitivity and metric
regularity in parametric dependence will be studied. Second-order
optimality conditions will be devised for new purposes and from
nonstandard perspectives. Connections between cost-to-go functions and
feedback for certain kinds of optimal control will be explored along
with the specialization to a control framework of recently generalized
Euler-Lagrange equations and Hamiltonian equations. New risk models and
splitting algorithms will be developed in stochastic programming, where
decisions must be made optimally in advance of full information.

These efforts are needed because problems of optimization, which are
of great importance in many applications from management to engineering,
are not well covered by standard mathematics of the past and have
required new ways of thinking. In such problems, centered on minimizing
"cost" or maximizing "efficiency", for instance, there usually are very
many side conditions that have to be satisfied, and moreover the number
of decision variables to be coped with can be enormous---in the thousands
or even millions. It is crucial to have a solid foundation for the
development of numerical methods for finding solutions and understanding
the effects that shifts in input data might have on those solutions.
The work to be performed will further the progress in those directions.